RUI: Quantum Effects in Microcrystalline Silicon in an Amorphous Silicon Dioxide Matrix

Fundamental investigation of the physics of quantum confinement and phase coherence, with emphasis on charge quantization and processes related to preparation, passivation, and characterization of the material properties of microcrystalline silicon in an amorphous silicon dioxide matrix is being conducted. The amorphous silicon dioxide serves both as a large energy barrier for resonant tunneling, and for the passivation of electrically active interface defects. This material combination broadens the type of quantum well structures from those requiring lattice matching of materials with different band gaps to include an established materials system that is not restrained by the lattice matching condition. These materials and their behavior are of interest from both basic science and technological perspectives. %%% This research is expected to broaden and extend our knowledge of the properties and behavior of the primary materials used in microelectronics, silicon/silicon dioxide, and provide fundamental understanding of quantum effects in microcrystalline structures. From an application point of view, understanding these properties will be helpful to semiconductor device design and fabrication, and the fundamental research results will be of importance in a general way to the technology of advanced integrated electronic circuits.